Minority Postdoctoral Research Fellowship for FY 2002: Third Year Extension

This action funds a third year extension of an NSF Minority Postdoctoral Research Fellowship. The research investigates the molecular cues that govern development of neuronal networks in mammals.